Development of a Spectropolarimetric Difference Imager

Under this Small Grant for Exploratory Research the Principal Investigator will examine the feasibility of using acousto-optic filter techniques, coupled with selection of times of excellent seeing lasting possibly only fractions of a second, to search for faint companions of brighter stars. This technique could be very useful in the search for brown dwarf stars and planets around nearby stars.